Oceanographic Instrumentation for the R.V. Weatherbird II

This grant supplies funding to the Bermuda Biological Station for acquisition of shipboard instrumentation in support of NSF-funded research. The instruments will be used aboard the R/V WEATHERBIRD II, a 115 foot vessel, which is owned and operated by the Station. The instrumentation is required for support of NSF-funded cruises aboard the WEATHERBIRD II during 1995 and will enhance the scientific capability of the vessel in the future. Instruments funded include a fluorometer, a transmissometer, a rosette pylon and an IMET shortwave radiation sensor. ??